Computational Singular Perturbations for Nonlinear Multiple Time-Scale Systems

This research project deals with the development of a methodology for the simulation, analysis and design of high-order, complex nonlinear dynamical systems that have an underlying multiple time- scale structure. The methodology provides for time-scale identification, efficient numerical simulation, and reduced-order model development. The specific objectives of the project are to extend the (CSP) Computational Singular Perturbation to a wide class of multiple time-scale optimal control problems, establish rigorous theoretical foundations for the method, develop and test algorithms, and apply the algorithms to design problems in robotics and aeronautics. The fundamental issues being addressed are: how to identify multiple time-scale structure in a nonlinear system and how to exploit multiple time-scale structure for simplified simulation, analysis and design. the research establishes a significant new capability for nonlinear system design. the order reduction, better conditions, and physical understanding - previously obtainable only for low-order systems by analysts applying the analytical singular perturbation method - will be obtainable for high-order, complex, nonlinear systems that have multiple time-scale behavior - systems such as machines, structures, ground vehicles, aircrafts, spacecrafts, robots, and other mechanical systems.